SHF: Small: Introducing Next Generation I/O Accelerator

Big data applications demand high speed, reliable, and energy
efficient data storage systems. Traditional storage architectures have
fundamental limitations because of legacy systems that have centered
on spinning hard disk drives. With rapid advances in nonvolatile
memory technologies such as NAND-gate flash, phase change memory, Memristor, and
magnetic RAM, a great opportunity arises for revolutionizing storage
architectures. The objective of this research is to start a paradigm
shift in storage architecture to meet the increasing demand of big
data applications. It is envisioned that future storage systems will
have machine intelligence that learns, analyzes, predicts, and
controls the system at runtime dynamically. A novel accelerator
architecture is introduced with machine intelligence to enable high
speed processing of storage data operations that are critical to high
performance computing in general and big data computing in particular.

The newly introduced I/O accelerator, residing either in a
many-core CPU chip or on a storage controller board, enables
sufficiently accurate predictions for effective optimization of
storage I/Os. With new architecture features, the proposed I/O
accelerator can carry out complicated I/O tasks in the speed
comparable to the emerging nonvolatile memories, which is critical to
I/O performance because it no longer operates in milliseconds as
spinning disks do. The project will explore and implement the I/O
accelerator that can effectively deal with the complexity and high
dimensionality of factors related to diverse storage technologies, a
large variation of application workloads, different
reliability/availability requirements, and power consumptions of
various storage components. The result is a new heterogeneous storage
architecture that is optimized for future computing infrastructure.
With the accelerator as an enabler, comprehensive methodology will be
investigated that proactively learns system behavior to anticipate
long-term trends and to respond quickly to fast changing I/O events.
The new architecture is believed to be the first of the kind providing
dynamic optimizations by means of 1) intelligent data placements and
replacements across heterogeneous devices, 2) optimal resource
allocation and provisioning to applications' workloads, 3) effective
data deduplication based on content locality, and 4) smart policy
decision on data protection and recovery adaptive to different data
types. Furthermore, the new accelerator enables fast in-situ data
analytics in active storage systems.

This research project is expected to have the following broader impacts:
1) In today's cloud computing and big data
applications, servers generate a large amount of I/Os that can take
full advantage of the new storage architecture. 2) The new accelerator
can be incorporated into many core CPUs as a specialized core for
future heterogeneous processors. 3) The new storage architecture will
speed up the adoption of emerging storage class memories. 4) The new
methodology will stimulate more research in applying machine learning
to storage systems. 5) The new CPU-and-data centric Computer Engineering curriculum will train
both graduate and undergraduate students for real world needs. 6) The
outreach program will continue the success stories of prior NSF
projects to help the economic development of the state of Rhode Island and the
nation.